SBIR Phase I: Accurate Indoor Location for Smartphones

This Small Business Innovation Research Phase I project will develop a system
for locating a smartphone inside a building very accurately, helping users
navigate and find items of interest indoors, where current systems do not
function. Building on academic research from MIT, the system will use
existing Wi-Fi signals combined with motion sensors and map data to produce
estimates with a 90th percentile accuracy of 1-3 m. This is significantly
more accurate than the currently available systems, which are accurate to
within 5-10 metres in the mean and worse in the 90th percentile. It uses
existing Wi-Fi signals, which means the system does not require additional
hardware in most buildings. The system incorporates three novel technologies:
1) a novel training system that uses motion sensors and map data to
dramatically reduce the time it takes to calibrate the system in a new
building compared to existing technologies, 2) a new location matching
algorithm that fuses motion sensors and WiFi signals to improve the accuracy
and reliability of location estimates from limited training data, and 3) a
system to predict the accuracy using the available Wi-Fi access points, to
determine if new hardware or additional training is required. All three
technologies are key competitive advantages essential to bring this
technology to market. This proposal will develop a Wi-Fi-based indoor
location system that is not only accurate, but also easy and cheap to deploy.

The broader impact/commercial potential of this project is that smartphones,
that have become indispensable tools for locating buildings and businesses in a
city, can now also be used to show a user his/her location on an indoor map,
and guide them to find what they are looking for inside large buildings where
people get lost all the time today --- while looking for points of interest
like ticket counters, products on shelves, airline gates, and stores. InFix's
approach of using existing WiFi beacons, ubiquitous everywhere today, has the
highest potential to achieve scale and reach, and realize the vision of
"precise location everywhere". This is in contrast to previous academic,
research and commercial efforts that all require installing specialized
hardware. Infix will license this technology to space owners, to integrate into
their smartphone applications. As the map and location database grow, the
company will allow third-parties to build their own innovative applications.